Attracting Liberal Arts STEM Students to Teaching: A Noyce Phase1 Proposal

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The goal of this project is to increase substantially the number of Holy Cross undergraduates who enter the teaching profession in STEM disciplines, including students from underrepresented groups. The project consists of five elements: (1) aggressive marketing of the Holy Cross Teacher Education Program (TEP) and the Noyce Scholarship Program to first- and second-year students; (2) new opportunities for first- and second-year STEM majors to serve as paid tutors and mentors for local inner-city public and private school students learning concepts in mathematics and science; (3) restructuring of the practicum requirement in the Holy Cross TEP to remove scheduling barriers that uniquely affect STEM majors interested in teaching; (4) enhanced support and instruction specific to teaching science and mathematics for STEM majors enrolled in our TEP; and (5) implementation of induction and mentoring activities to support new STEM teachers once they begin their post-graduate teaching responsibilities. A total of 20 students are to be funded with scholarships through their junior and senior years and 70 student internships.